Gauge Theory and Geometry in Dimensions Three and Four

Abstract

Award: DMS-0100771.
Principal Investigator: Peter B. Kronheimer

The aim of this project is to apply gauge-theory techniques to
the study of three-dimensional manifolds. The principal
investigator proposes to investigate Floer homology and closely
related areas of geometry, and hopes to shed light on the
applicability of gauge theory to problems in three-dimensional
topology. In particular, it is hoped that a relation can be
established between the Floer homologies of three-manifolds
defined on the one hand by the monopole equations on the other
hand by the instanton equations. (These are the equations which,
in four-dimensions, lead respectively to the Seiberg-Witten
invariants and Donaldson invariants of four-manifolds, and which
have led to an flood of results in four-dimensional differential
topology in the past twenty years.) A first goal is to prove
that if the instanton Floer homology of manifold with first betti
number one is trivial in the strong sense that all the
representations of the fundamental group can be made to disappear
by a holonomy perturbation, then the monopole Floer homology
groups are trivial also. (For the instanton groups, the relevant
representations are the representations in SO(3) with non-trivial
Stiefel-Whitney class.) By an application of a non-vanishing
theorem for the monopole Floer homology and use of Floer's exact
triangle, this would lead to a proof of the "Property P
conjecture". A related goal in this project is the development
of new constructions for Floer homology, based on the technique
of finite-dimensional approximation (which has already seen
convincing application in the study of the four-dimensional
invariants).

Topology is the qualitative study of space and its connectedness.
Its importance was recognized at the turn of the last century by
the French mathematician Poincaro, during his investigation of
the laws of motion that govern the movement of a three-body
system such as the Earth, Moon and Sun moving according to
Newton's laws. In the past twenty years, topology has seen
applications in questions such as the knotting of proteins and
DNA, and in modern theories of high-energy physics. The topology
of three-dimensional spaces, as opposed to those of higher
dimension, is of particular subtlety. Through this project, it
is hoped to bring new techniques to bear on outstanding questions
in three-dimensional topology. These techniques -- gauge theory
and the Seiberg-Witten equations -- originated in physics, where
they had potential application to fundamental questions such as
quark confinement. They have been an effective tool in the study
of four-dimensional spaces (such as our space-time). The aim now
is to apply the same techniques to questions in dimension three.